Nuclear Structure and Nuclear Processes at Intermediate Energies (Physics)

This support is for operation of the Indiana University Cyclotron Facility and for research in experimental nuclear physics for the 1988-1990 period. During this time an electron-cooled storage ring (the Cooler) will be completed. The Cooler will serve as a post accelerator for the existing cyclotron beam, increasing the energy by a factor of 2.5, and providing beams with unusually high energy resolution and readily variable energy. The research focuses on studies of free and effective interactions in nuclei and of nuclear response functions. Nuclear structure problems and nuclear reactions at high momentum transfer and high excitation energy are also being investigated. Research in accelerator physics is part of the Cooler development program. The Indiana University Cyclotron Facility (IUCF) is a national facility for basic research in intermediate energy nuclear physics.